NSF Convergence Accelerator Track K: Spatially Resolved Solutions for Field to Regional Irrigation Water Management to Promote Equitable Sharing of Limited Water Resources

In response to the pressing challenge of freshwater scarcity, particularly impacting vulnerable communities, this Convergence Accelerator Track K Project proposes the development of a user-tailored irrigation water management decision-support hub, focusing on Central Valley, California. Utilizing satellite remote sensing, weather forecasts, and soil/crop models, the project aims to provide individual growers with daily irrigation advice at a high spatial resolution, integrating available soil water and crop water demand. Additionally, the tool will offer water districts and regulators aggregated crop water demand and consumption data, supporting regional-level decisions on equitable water allocation. When the proposed tool is developed and distributed for public use, it will help mitigate groundwater depletion, enhance water use efficiency, lower irrigation costs, and contribute to regional water allocations that take into account water resource availability and environmental constraints.

The project's technical goals encompass stakeholder engagement, conceptual model development, web-based tool creation, and testing and evaluation. Stakeholders will be engaged throughout the research, contributing to design requirements and evaluation analysis. The conceptual model, which integrates innovative remote sensing products, weather forecasts, and user inputs, will guide the development of a web-based decision-support tool. This research will involve creating innovative remote sensing products, such as high-resolution (10-m, daily) data for near-surface soil moisture, root-zone soil moisture, and evapotranspiration based on satellite data. The tool will produce farm-level outputs, including irrigation advice, and regional-level outputs including aggregated water consumption and demand data. The prototype tool will undergo testing on various pilot farms in Central Valley, encompassing diverse climates, crop types, and irrigation methods. This testing phase will include the installation of sensors to measure soil moisture and evapotranspiration data, as well as field campaigns to monitor crop growth conditions and irrigation scheduling decisions. Additionally, economic analysis will be conducted to assess growers' willingness to adopt the tool and quantify its impacts on irrigation efficiency and farm productivity.